Publishing Conference Proceedings on Mosaic

ABSTRACT The Institute of Electrical and Electronic Engineers' (IEEE's) Education and Computer Societies and the American Society for Engineering Education's (ASEE's) Educational Research and Methods Division (ERM) will produce the proceedings of the 1995 Frontiers in Education (FIE) Conference in electronic format for distribution via World Wide Web, CD-ROM and conventional computer disk. The FIE conference represents a major forum for dissemination of curricular innovations in enginering education, including many projects developed with NSF support. Additional co-sponsors in this activity include SONY Corporation, Purdue University, and the Illinois Indiana Section of ASEE.